REU Site: GT-SUPREEM: The Georgia Tech Summer Undergraduate Program of Research in Electrical Engineering for Minorities

9820254
Georgia Institute of Technology
Gary S. May

Support is requested for the continuation of the GT-SUPREEM program, in which the
Georgia Institute of Technology serves as a NSF REU site. GT-SUPREEM is a ten-week summer
research program designed to attract qualified minority students into the field of electrical
engineering. Ten students of at least junior-level undergraduate standing will be recruited annually
on a nationwide basis and paired with both a faculty and a graduate student mentor to undertake
research projects in the Georgia Tech School of Electrical and Computer Engineering. The students
will be housed on campus, and in addition to lodging, meals, and a travel allowance, will be provided
with a $4,000 stipend. At the conclusion of the summer, the students will be expected to prepare
both oral and written summaries of their research projects. It is anticipated that this experience will
encourage these students to become applicants for graduate school in the ensuing years. Three years
of support are requested.